EPSCoR National Program Review

The theme of the meeting and conference is "Renewable Energies for a Global Economy" which is very consistent with the NSF supported EPSCoR programs in many EPSCoR jurisdictions. The interest in renewable energy is increasing in the NSF-supported work in these jurisdictions. The involvement of NSF EPSCoR communities and the potential collaborations with National Labs will be beneficial. Collaborations between NSF/EPSCoR and DOE/EPSCoR have occurred for a number of years and have been successful. This is a good example of interagency collaboration at the national level. I encourage support of this contract.